Development of Multimode Gravitational Wave Bar Detector with Optical Transducer

Professor Richard's group will continue development of sensitive new transducers designed to operate with bar detectors for the search of gravitational radiation. Assemblies consisting of tuned harmonic oscillators of decreasing masses attached at the end of a cylindrical bar antenna are being developed to amplify the small displacements generated in the antenna by a gravitational signal. A very high finesse laser illuminated Fabry-Perot sensor with power dissipation at the level of a few microwatts or less is used to detect amplified mechanical displacements. The sensitivity projected for a three-mode 2400kg A15056 antenna operating at 800Hz and cooled to = 0.03K (such as planned by two research groups) is at the level of .h = 8.7 x 10-21. Such a sensitivity would permit observations of astrophysical significance.